Research in Elementary Particle Physics

Research in theoretical elementary particle physics will include a study of low energy flavor-violating decays of the K and B mesons in the context of supersymmetric grand unified theories, and a calculation of the production and decay of heavy right-handed neutrinos in the explosive reheating which follows inflation. The experimental observation and theoretical understanding of rare flavor- violating processes provide an important low energy window into very high energy physics, and such studies constitute a prominent component of the present endeavor in particle physics. The production of particles during the reheating process following the exponential expansion and cooling of the universe during inflation is decisive in determining the structure of our observable universe. The processing of heavy right-handed neutrinos subsequent to inflation may generate the presently observed asymmetry between matter and antimatter.